Dissertation Research: The Evolution of Communication: TheIntegration of Visual and Vocal Signals

IBN 94-12275 Marler & Partan Abstract Animals often communicate using both sight and sound. Analysis of this use of two modalities presents substantial procedural difficulties. In her doctoral dissertation research, Ms. Sarah R. Partan will take a very exciting new approach to this problem by using TV and audio tape. This offers the enormous advantage of allowing experimental control over the presentation of information in the two modalities both separately and simultaneously. This will allow Ms. Partan to begin to determine how information is combined across modalities during the process of animal communication, thus making an important contribution to the study of animal communication..